U.S.-Brazil Workshop Partial Differential Equations and Several Complex Variables; Serra Negra, Brazil; August 2005

0522383
Meziani

This U.S.-Brazil workshop is jointly supported by the Americas Program of the Office of International Science and Engineering (OISE) and the Division of Mathematical Sciences (DMS). It is organized in the U.S. by Drs. Abdelhamid Meziani of the Florida International University, Shiferaw Berhanu of Temple University, and Nicholas W. Hanges of CUNY; in Brazil by Adalberto Bergamasco and Paulo Cordaro of the University of Sao Paulo and Jorge Hounie and Gerson Petronilho of the University of Sao Carlos; and in China by Chen Hua of Wuhan University. This workshop will focus on two mini-courses in the fields of several complex variables and partial differential equations that are designed primarily for graduate students and recent Ph.D.s. It will be held in Serra Negra, Brazil in August 2005, and leading senior researchers from Brazil, the U.S., Europe, and China will conduct and participate in the sessions.

Brazil has a very strong group of researchers in these topic areas, and this activity will enhance collaborations between the U.S. and Brazil, as well as those with China. The workshop will provide an excellent opportunity for young mathematicians to learn from and exchange ideas with some of the most eminent researchers in the field.